SGER: Managing Inconsistency in Logical Spreadsheets

In traditional spreadsheet systems, such as Excel, cells are
partitioned into "directly specified" cells
and "computed" cells and the formulas used to specify the values of
computed cells are "functional",
i.e. for every combination of values of the directly specified cells,
the formulas specify unique values
for the computed cells. Logical Spreadsheets expand the utility of
traditional spreadsheets by
dispensing with the distinction between directly specified cells and
computed cells and generalizing
from functional definitions to logical constraints.

One problem with logical spreadsheets is the potential for
inconsistency. In using logical spreadsheets,
users can select values for cells that are inconsistent with the
values of other cells, given the constraint
defining the spreadsheet. Simply eliminating inconsistent values is
not the answer - (1) rejecting new
values that are inconsistent with past values limits the user's
freedom and (2) dropping past values that
are inconsistent with new values restores consistency but loses
information. On the other hand, retaining
inconsistencies is problematic when the spreadsheet tries to derive
consequences of updates, since
inconsistent logical theories entail everything!

Unlike logical entailment, existential entailment behaves well in the
face of inconsistencies and, therefore,
is more useful in this setting. Work in this project includes (1) a
study of the behavioral properties of existential entailment in the
context of logical spreadsheets, (2) the development of efficient
algorithms
for computing existential entailment (with special attention to rule
transformation, reformulation, and
differential logic), (3) the development of an open-source Javascript
implementation incorporating these
algorithms, and (4) an evaluation of this technology in the form of
user surveys, comparative studies, and
ablation studies.

Further information on the project can be found at the project web
site at http://logicalc.stanford.edu.